Implementation Project: Strengthening Student Success in STEM (S^4)

Implementation Projects provide support to Historically Black Colleges and Universities (HBCUs) to design, implement, study, and assess comprehensive institutional efforts to increase the number of students receiving undergraduate degrees in science, technology, engineering and mathematics (STEM) and enhance the quality of their preparation by strengthening STEM education and research. The project at Fayetteville State University seeks to build on previous successful efforts to increase the participation of African-American students in STEM disciplines. The goal of this project is to significantly improve recruitment, persistence, retention and graduation rates for STEM undergraduate students.

The project will utilize evidence-based, high-impact pedagogical practices to improve student learning and outcomes. The practices include: a professional seminar course sequence; assessment-based adaptive mathematics courses; student-centered active learning environment upside-down pedagogies; intrusive peer tutoring and supplemental instruction; and undergraduate research. The project will study the impact and efficacy of the flipped classroom and determine effect sizes of its adoption by examining students' perceptions, learning and outcomes. The project will be advised and evaluated for effectiveness by internal and external advisory boards and an evaluator.